U.S.-China Cooperative Research: (A Petrotectonic Study of Intracratonal Blueschist and Eclogite Belts in Central China)

This award provides supplemental funding to EAR 9204563 for the collaborative study with Chinese scientists of high-grade metamorphic rocks in central China. The objectives are to map several metamorphic belts, to study the mineralogy of the high pressure rocks there, to delineate mineral parageneses and to establish geologic ages for several critical rock units. The study will lead to a better understanding of how continental crust was subjected to mantle depths, and later exhumed.